Developmental Components of Respiratory Adaptation to High Altitude

The primary objective of this proposal is to improve our understanding of the respiratory adaptations brought about by life at high altitude. In particular, people evidence growth plasticity, growing to accommodate the ambient environmental conditions. Generally, the growth differences at high altitude appear to be adaptive; ie they help the individual to function under hypoxic conditions. However, not all growth differences are obviously adaptive. For instance high altitude natives have a lower ventilation rate when exercising at high altitude than do lowland natives, yet they have higher work capacities than sea level natives acclimatized to high altitude. It is thus critical to analyze the role of development on a variety of physiological parameters of adaptation, such as ventilation. This project will analyze a number of developmental components of high altitude adaptation. Parameters such as residual lung volume, ventilation rate and oxygen consumption under maximal exercise will be assessed in high altitude Bolivian natives living permanently above 3500 meters, lowlanders of European descent who are acclimatized to high altitude during growth, and a group of lowlanders of European descent who were acclimatized to high altitude during adulthood. The results will help to clarify the mechanisms by which humans can adapt through growth processes to life at high altitude.